A Restructured Engineering Science Core with a Design Component

This project changes the way the engineering curriculum is structured by: 1) repackaging the material taught in the basic engineering sciences into five courses, each of which is based on similar scientific and mathematical background; 2) including in these revised engineering science courses significant engineering design experience. These steps will address several concerns about engineering curricula including: 1) the increasing number of "basic" engineering science courses that result from identifying these courses with the various engineering disciplines; 2) the separation of engineering design from engineering science in the minds of students with the consequent lack of appreciation for the interaction of engineering science with engineering design; 3) an apparent loss of interest by students in creative engineering efforts as a result of the heavy doses of analysis in the engineering sciences. Institutional funds commited to this project are approximately one-third of NSF funds.